Mathematical Sciences: Hamiltonian Dynamical Systems

The investigator proposes research in the analytic and topological aspects of bifurcation phenomena aring in non-linear dynamics. Further research will be carried out on comet-like periodic orbits in the N-body problem.